Special Workshop entitled: The Establishment of an Institute for Emerging Constructed Systems

Improving our ability to design and construct high quality facilities will require technological innovations. Research plays an important role in originating innovations. However, there are many barriers to implementing innovations. A major new paradigm is necessary in order to stimulate technological innovations within the Construction Industry. One proposed strategy is based on the creation of an "Institute" dedicated to the promotion of " Quality Constructed Facilities". The Institute would serve as the catalyst for research directions, and the development and implementation of interdisciplinary approaches to design and construction. The goals of the workshop are as follows: 1) To establish whether there is a strong consensus for an "Institute for Constructed Systems". 2) To explore the role of the proposed institute within the National Science Foundation and the Civil Engineering Profession. 3) To explore how the Institute could be implemented and funded.